Proposal for RPI Research Site of Industry/University Cooperative Research Center "Connection One"

The technical focus of the Rensselaer Polytechnic Institute research site for the Industry/University Cooperative Research Center for Telecommunication Integrated Circuits and Systems "Connection One" is in broadband data transport including basic and applied interdisciplinary research in secure optical and electrical data transport, switching and processing. This research will include materials, devices, systems, and information technology, requiring long-term commitment to achieve the orders of magnitude improvements needed in the speed, density, power, cost and reliability of secure data transport and communications. The research site will address basic research issues that enable the massive scaling required by these systems in optical and electrical data transport, switching, and processing.